Mathematical Sciences: A Center for Undergraduate Research in Computer Science at IIT

The Computer Science Department at IIT will select 10 undergraduate students from the Midwest in the summers of 1990 and 1991 to participate in a summer research program. A significant percentage of the students will be from under-represented groups such as minorities and women. Students will work with IIT faculty in several areas of computer science including artificial intelligence, parallel programming, software engineering, and database design. The primary goal of this program is to encourage promising undergraduate students to pursue graduate studies in science.